A VLSI Model of Muscular Mechanics, Architecture, and Control

9872759
DeWeerth
The objective of this research is to explore the applicability of biologically-based muscular control to the implementation of artificial systems. This goal will be pursued through the development of a cross-bridge-level model of muscle, implemented using analog very large-scale integrated (aVLSI) circuits. The three specific aims of the research are to: (1) develop an aVLSI model of sarcomeres, the fundamental functional components of muscle, based upon the Huxley and Zahalak formulations of crossbridge dynamics, (2) aggregate these model sarcomeres to create muscle fibers and muscle units, and evaluate the role of series/paralled architecture and parameter heterogeneity of emergent functionality, and (3) combine model muscle units (incorporating activation dynamics) and motoneurons to form motor units, and create a computer controlled muscular control system consisting of an array of these motor units.